Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM)

Harold Deutschman
New Jersey Institute of Technology

Dr. Deutschman has a distinguished record over the past twenty-nine years initiating pre-college programs, teaching and directing such programs and mentoring students to enter college and pursue careers in science, mathematics and engineering. A summer engineering program for 9th and 10th graders initiated by Dr. Deutschman in 1970 has run continuously for twenty-nine years. He has mentored over 2,500 students averaging 100 students per year. These students have been predominately underrepresented minority students from the Greater Newark area. Over 95% of Dr. Deutschman's mentees have enrolled in college and 70% have majored in science, mathematics or engineering.